Parallel Processing for Solution-Adaptive Computation of Moving-Front Problems

9360521 Murthy The objective of the proposed work is to develop efficient and accurate computational techniques for the solution of moving front problems such as those occuring in phase-change, pollutant dispersal, groundwater transport and others. We will use MIMD parallel processing to obtain the computational speed necessary to solve these computer-intensive problems. Phase I of the project will be devoted to developing tools for dynamic partitioning and load balancing.